RUI: Electromodulation Study of Coupling Between Double andMultiple Quantum Wells

The PI will do a comprehensive study of coupling between double and multiple quantum wells using electromodulation as well as other modulation methods such as temperature modulation (thermomodulation). In addition, we plan to use these coupling effects to more accurately determine band offsets in these semiconductor structures. Our main focus will be on the GaAs/GaA1As system although other systems such as strained layer InGaAs/GaAs will be examined if time allows.